Traineeships in Environmental Physical and Mathematical Science and Engineering

A graduate program is proposed to develop expertise and research skills in the discipline of Environmental Sensors and instrumentation. The program will combine the science and engineering teaching and research resources of the Georgia Institute of Technology and Clark Atlanta University in an interdisciplinary program leading to a career in the burgeoning field of environmental measurement. Students will select a primary major area (e.g. Earth and Atmospheric Sciences, Civil Engineering, Chemistry, Environmental Engineering or Biology) while pursuing a 24 credit-hour graduate certificate course. This course will be structured around a 15 credit-hour core of basic studies, with additional optional specialist topics. Students will select their research projects from a wide range of science and engineering disciplines, working with highly qualified faculty members. The program will heavily recruit minorities and females, and their progress through the program will be monitored for maximum retention and success. Students with appropriate interests will have the opportunity for collaborative and international research programs with industrial and Government sponsors, primarily Hewlett-Packard Analytical Instruments Division, Electricite de France, and Savannah River Site. An additional four traineeships beyond the NSF commitment will be co-sponsored by the participating universities.